Recovery Type a Posteriori Estimation and Mesh Refinement for the Finite Element Method on Anisotropic Meshes

For problems exhibiting strong anisotropic features the finite element method
(FEM) based on anisotropic meshes can be much more efficient than the one
based on isotropic meshes, provided the meshes are properly aligned and the
right aspect ratios are maintained. However, there has been little rigorous
analysis about it, and most computational work has been restricted to linear
elements, based on heuristic justification and ad-hoc treatments.
The aim of this project is to provide the numerical analysis for the FEM
on anisotropic meshes and develop effective controls for the adaptive
mesh refinement. The main objectives of this project include:
(i) Analyze various recovery type error estimators for the FEM
on anisotropic meshes; (ii) Develop reliable mesh metrics and mesh
quality measures to control the anisotropic mesh refinement process;
(iii) Develop a software tool box for the post-processing of the
finite element solutions, including error estimation, mesh metrics
construction, and mesh quality evaluation. (iv) Provide research training
to graduate students on adaptive finite element computation in science
and engineering.

Error estimation and adaptive mesh refinement are two major components
in practical finite element simulations. The former assesses the accuracy
of the solution and provides the quality assurance when it is delivered.
The latter is an indispensable tool for improving the solution when the
desired accuracy has not been reached. For anisotropic FEM, the elements
are allowed to be long and narrow to fit the underlining problems more
effectively. They may vary in sizes, orientations, and aspect ratios.
This project is aimed at providing better understanding of the behavior
of anisotropic FEM and developing more efficient techniques for the FE
simulations. Since the recovery type error estimation techniques
are simple, extraordinary robust, and most commonly used in engineering,
it will be the main focus of this research. Successful completion of
this project will provide rigorous mathematical theory and more efficient
algorithms for practical FE modeling and simulations in aerospace
engineering, material processing, and biomedical researches.